Algorithms for Discrete and Stochastic Partial Differential Equations

This project concerns the development and analysis of efficient
numerical algorithms for problems arising in computational modeling,
with emphasis on two main topics: algorithms for systems of equations
arising from the stochastic finite element method, and algorithms for
algebraic systems arising in models of fluid dynamics. The first of
these addresses the fact that models of physical phenomena often
contain parameters or equation coefficients whose precise properties
are not well understood. Examples include permeability properties of
media in which quantities (e.g., pollutants in groundwater) are
flowing or diffusing, and boundary conditions (e.g., along the ocean
bottom). In the stochastic finite element method, the random aspects
of problems are handled in a manner analogous to the introduction of
new spatial dimensions. This methodology appears to have the
potential to be more efficient than Monte-Carlo methods, provided
efficient algorithms are available for the algebraic systems that are
generated after discretization. Our aim is to study the algorithmic
issues that arise from this approach. For the second project, we will
develop and study efficient algorithms for solving systems of
equations arising in models of incompressible flow, principally,
methods for eigenvalue problems derived from linear stability analysis
of steady solutions, and multigrid algorithms for the discrete
convection-diffusion equation. These are fundamental problems arising
throughout fluid dynamics, and their efficient solution is critical
for development of effective computational models.

The general aim of this project is to enhance the utility and
effectiveness of mathematical modeling for understanding scientific
and engineering phenomena. There are useful models for many disparate
physical processes, including blood flows, dispersal of environmental
pollutants, performance of aerospace vehicles, and atmospheric and
oceanographic phenomena. Understanding such processes through purely
experimental techniques is prohibitively expensive or impossible,
whereas the use of modeling and together with algorithmic solution
introduces a basic understanding of the physics by providing
approximations to quantities such as flow rates and pressures.
Accurate solutions are only available, however, if reliable and fast
solution algorithms can be used. Moreover, it is often the case that
certain aspects of models, such as the geologic properties of
transporting media or the velocities of flows along boundaries, are
not known with certainty. Our goal for this work is to develop fast
solution algorithms for mathematical models and to ensure that the
solution strategies are able to handle uncertainty and to produce
reliable statistical information about solutions at low computational
cost.